GEM: Simulations of Diffuse Auroral Electron Transport and Precipitation in Realistic Model Storms and Substorms

This project will develop a model of the spatial and temporal variation of electron precipitation in the diffuse aurora. The project will utilize an existing, physics-based model of Earth's ring current and add electron losses due to pitch-angle scattering. The existing model will be improved to include a realistic magnetic field model as opposed to a simple dipole model and to have a self-consistent description of the electric field. The modeled electron precipitation will be used to calculate the ionospheric conductivity tensor for different magnetic conditions.

The model will be made available to the space science community and will be useful in developing a Geospace General Circulation Model (GGCM) which is one of the main goals of the Geospace Environment Modeling (GEM) program. The ability to calculate ionospheric conductances will be useful in understanding the coupling of the magnetosphere to the ionosphere. The project will improve our predictive space weather capabilities, which will have societal and economic benefits.